Acquisition of Instruments for Great Lakes Research

0115810
Zhou
This Major Research Instrumentation award to University of Minnesota at Duluth will provide support for acquisition of a towed, profiling vehicle with physical, biological and chemical sensors for environmental and lacustrine research. It will also support the acquisition of an instrument for studying physical microstructure and turbulence in lake waters. These instruments will be managed and operated as shared-use research facilities, available to all funded users of the UMD Large Lakes Observatory's research vessel Blue Heron, which is operated as part of the University-National Oceanographic Laboratory System (UNOLS) academic research fleet. UMD will contribute cost-sharing of more than 30% of the cost of this project from non-federal funds.
***